Gap Junctions and Pattern Formation in Frog Embryos

In early development in the frog Xenopus laevis depends entirely on materials stored in the full grown oocyte. Embryonic gap junctions channels, or connexins, are oligomers of one or more of the oocyte connexin proteins. Dr. Gimlich proposes to specifically eliminate each connexin by ablating its mRNA in the oocyte to determine its functional contribution to embryonic channels. The consequences of connexin deficiency will be assessed by electrophysiological methods, with a major goal being to eliminate gap junction channels between embryonic cells. Several treatments, including improper expression of certain growth factors and proto-oncogene products, result in development of enhanced or duplicated dorsal, axial structures. These perturbations also lead to region specific increase in the number of functional gap junctions. The meaning of this correlation will be tested by experimental manipulation of the number of gap junction channels. The experiments will yield information on the physiological role of junctional channels during blastula stages of development, when the pattern of cell fates is laid out in the embryo through a series of cellular interactions involving signals that may be transduced by gap junction permeable second messengers.